Acquisition of Inductively Coupled Plasma Mass Spectrometer for Biogeochemistry

This award from the Chemistry Research Instrumentation and Facilities (CRIF) and the Major Research Instrumentation (MRI) Programs will assist the Department of Chemistry at the University of Wisconsin in Milwaukee acquire an Inductively Coupled Plasma Mass Spectrometer for Biogeochemistry. This equipment will enhance research in many areas, including elemental species analysis in the environment; effects of contaminants in the aquatic environment on neurobehavioral integration among fish; cellular and molecular mechanisms of transition metal metabolism; aquatic bacterial metal metabolism; metalloprotein structure and function; and development of synthetic metal ion sensors.

Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules.